Eigenvalues for Vibrating Plates and for Thin Film Equations

DMS-9970228
ABSTRACT

The research will attempt to establish the folowing three conjectures.
(a) That the fundamental tone of a vibrating clamped plate under
lateral tension is minimal for the circular plate, given fixed area.
Mathematically, this involves minimizing the first eigenvalue of the
biLaplacian amongst plane domains of given area, with both Dirichlet
and Neumann boundary conditions imposed. Symmetrization methods will
be employed.
(b) That steady states of "thin fluid film" type partial differential
equations can be linearly stable in certain situations, but in other
situations can be unstable and tend to film pinch-off or blow-up. Trial
function and differential inequality techniques will be used to prove
the in/stability results.
(c) That the first moment of an equilibrium unit charge distribution
in the plane, about its electrostatic centroid, is maximal for a line
segment. A "double *-function" will be developed to attack this problem.
The methods to be applied to these problems are mathematical, though each
problem has physical meaning.

Problems of vibration, fluids and charges have been studied for
hundreds of years. Today they remain challenging and important, as
scientists grapple with new and old materials on extreme scales and under
extreme conditions. The history of 20th century science shows, though,
that progress on practical problems often depends on the methods and
insights developed in basic research. The problems addressed in this
proposal have been chosen for their potential to provide such insights. For
example, the conjectured answers to problems (a) and (c) are "obvious" - the
puzzle (and challenge) is that no-one can explain logically why these
answers are correct. Finding such a logical explanation is sure to profitably
enhance our understanding of and capabilities with problems of vibration
and charge distribution. More specifically, the first problem in the proposal
deals with choosing the shape of a thin vibrating rigid plate so as to
minimize the lowest resonant frequency. Experiments performed over
100 years ago suggest the circular plate is the one with lowest frequency,
but there is still no theoretical explanation for this. The next problem
concerns the equations that model thin lubricating films of viscous oils.
These equations are nonlinear, meaning familiar superposition principles
(adding two solutions to get another solution) do not apply. Nonlinear
problems are at the forefront of mathematical analysis, and this research
aims to understand how it is that nonlinear effects create stability,
instability and pinch-off in thin fluid film equations. The third problem
considered in the proposal is a simply-stated but still-unsolved problem
arising from the theory of electrostatics, to do with how electrons arrange
themselves on a conductor under their mutual repulsion.